An Implementation and Research Test Bed: The Integration of Technology and Learning in Selected Underserved Parishes

This award through the special activity Technology Integrated in Education will support a test bed activity in rural, poor school districts. The project will be modeled on InTech 6, the successful Georgia Framework for Integrating Technology. Louisiana, with five other states, will provide professional development and equipment to teachers, to enable schools to fully adopt technology-assisted instruction